Improving the Decision-Making Skills of Secondary School Students

9154382 Gregory Decision Science specialists at Decision Science Research Institute together with teachers at the Eugene (oregon) 4-J School District are developing ten to twelve modules focussing on teaching decision-making skills to secondary school students. The project focuses on decision making in science areas related to human health and to the environment. Students will learn to represent decision opportunities in terms of expected consequences of different choices and the perceived desirability of those choices. The material will present the four themes of decision thinking, structuring, uncertainty and tradeoffs and show that values are important and decision making is purposeful, there are future events that cannot be controlled or predicted, personal choices have an influence on future directions, and different choices result in different benefits, risks and costs. Instructional modules will be developed and evaluated on the basis of their success in encouraging better decisions as well as their ability to enhance decision making skills in science domains. Dissemination will be conducted with assistance from the International Society for Technology in Education. ***